Acquisition of Tunable Infarared Laser Instrumentation

Lasers provide the chemist and physicist with the means of carrying out high resolution, high sensitivity experiments using most of the infrared spectrum. If laser instrumentation is combined into a central laser laboratory, the research of a group of top-notch investigators can be effectively enhanced. The Department of Chemistry at Yale University will use this award from the Chemical Instrumentation Program and the Atomic, Molecular, and Plasma Physics Program to help acquire modern laser instrumentation. The areas of research that will be enhanced by the acquisition include the following: 1) Structure and bonding in transient chemical species 2) Oxygen and other atmospheric gasses: characterization of specific optically excited levels, decay rates and mechanisms 3) Atomic and molecular Rydberg state spectroscopy 4) Structures of ionic clusters.